Large-Scale Optimization

Optimization problems arise in all areas of science, engineering, and industry. They
involve choosing variables to satisfy certain constraints while minimizing an objective
function such as cost or weight. Large problems may have many thousands of variables
and constraints, but they are usually sparse in some way. For example, each constraint
may involve only a few of the variables.

This proposal describes a 3-year program of research to develop new computational
methods for solving large real-world optimization problems. The design of algorithms
to exploit sparsity is the main focus of our research.

Our large-scale solver SNPOT already represents a major advance. Its Sequential
Quadratic Programmin (SQP) algorithm is efficient on large problems if the number
of degrees of freedom is moderate (i.e., the number of binding constraints is nearly
as large as the number of variables). Many important applications are of this
kind - for example trajectory optimization for spacecraft and aircraft. However,
succes on such problems inevitably generates the demand to solve larger problems.

We must develop a new sparse QP solver (the heart of an SQP algorithm). Other
advances are proposed to improve SNOPT's performance on problems whose nonlinear
functions are cheap to evaluate. This includes a vast array of applications generated
by the algebraic modeling systems GAMS and AMPL.

A key aim of this project is tranferring results to the scientific and industrial
community by developing mathematical software.